Documenting Floristic Diversity in a Threatened Biodiversity Hot Spot: San Diego County, California (Phase 1)

San Diego County is an internationally-recognized "hotspot" of biodiversity.
It's climatic, geographic, and geologic features support the greatest
floristic diversity of any county in the contiguous U.S., making it more
diverse than some entire states. This diversity is threatened by rapid
urbanization and associated habitat loss. Recent wildfires burned almost 25%
of the county, underscoring the urgency and significance of collecting and
preserving plant specimens to document this remarkable floristic diversity
before it is lost. The pace of regional development has left land managers
with limited scientific data on local flora, along with mounting
responsibilities for stewardship and informed decision-making. Crucial
decisions made here affect the future of national biodiversity and they must
be made with the most comprehensive, scientifically sound, information
possible. The San Diego County Plant Atlas (Plant Atlas) will address these
needs by scientifically documenting the county's floristic diversity through
the collection of voucher plant specimens for the San Diego Natural History
Museum (SDNHM); the independent non-profit organization overseeing the
project. Voucher specimens (dried and pressed plants, mounted on archival
paper with a data label, and filed in the herbarium) are the raw materials
for various scientific disciplines. The associated data (including
geographic coordinates plus detailed taxonomic and ecological information)
are stored in a web-accessible, searchable electronic database. This creates
a comprehensive, centralized source of botanical information for the county
and includes both historic and new data that are based upon actual specimens
rather than observations that can no longer be verified. Specimen and data
collections are made and submitted by "parabotanists"; volunteers from the
community trained by a novel program developed and taught by the SDNHM staff
(but identification of all specimens is verified by a professional
botanist). This creates sufficient workforce to collect specimens over a
5-year period within an organized, county-wide grid system that complements
the county-wide bird and mammal atlas projects.

The collections will be maintained by the SDNHM for education, informed land
management and decision-making, and to support scientific research on
biodiversity, phytogeographic history, biogeography, taxonomy, anatomy,
morphology, reproductive biology, and genetics. Besides acting as a model
program for other regions, the training and publicity from the novel
parabotanist program increases the community's awareness and respect for
local natural history (and the national, if not global significance of the
local flora), and strengthens their role as stakeholders, stewards, and
participants in regional botanical science. This collaborative project has
the support and participation of state and local government, NGO's, the
private sector, academia, and both professional and lay individuals.
Educational links with garden clubs, conservation groups, and other
institutions like schools and universities are being developed. San Diego
County contains a rich heritage of botanical diversity and we have an
obligation to better understand and preserve it for ourselves and for future
generations. The Plant Atlas project will increase our knowledge of the
diversity and distribution of plants in the county, share that knowledge
with specialized and public audiences, and contribute to conservation,
education, science and sound land management.